RUI: Studies of Singularities

The singularity theorems tell us that singularities form in a large class of spacetimes, including the physically relevant cases of the big bang and of the gravitational collapse of a star to form a black hole. However, these theorems tell us very little about the nature of the singularities. For example, we would like to know the entire class of incomplete observers, how the curvature behaves along their world lines and whether they can see the singularity before they hit it. Since we do not have the general solution of Einstein's equation in closed form, it is proposed to use all the methods available for the study of singularities: (i) to find exact solutions and study their singularities, (ii) to examine, in a general way the behavior of classes of singular spacetimes, or (iii) to perform a numerical study of spacetimes with singularities to address these issues. ½¼^¡&ú¼^¼(½